Monolithically Integrated Avalanche Photodiode Arrays

9360796 Wang Monolithic integration of silicon avalanche photodiode (APD) arrays with their associated electronics is proposed. The photodiode elements are based on the state-of-the-art process developed by Radiation Monitoring Devices, Inc., which achieves uniform bulk breakdown by using neutron transmutation doped silicon and a "beveled junction" to suppress surface breakdown. ARACOR intends to combine these photodiode arrays with their readout electronics by using a special bonded wafer approach to achieve three-dimensional integration. In the proposed approach, the already processed photodiode wafer will be bonded to a prime wafer. The readout electronics will be processed in this prime wafer after it has been thinned. The readabout electronics and photodiodes will be fully dielectrica11y isolated with electrical connections made by means of vias opened through the silicon film and buried dielectric. The Phase I feasibility study will include fabrication of a two element APD array, integration of this array into a bonded wafer substrate, and processing of the interconnects. ARACOR will design readout electronics and fabricate a prototype of the inregrated detector array in Phase II. In Phase II, ARACOR intends to incorporate these integrated detector arrays into its own systems and provide OEM components to others in cooperation with RMD.